Undergraduate Mathematics Computer Laboratory/Classroom

9452129 Richters An Undergraduate Mathematics Microcomputer Laboratory/Classroom is being developed in order to integrate the tools of the Maple computer algebra system into upper division mathematics courses.In addition, student access to computers is being provided in a classroom where faculty may explore the pedagogy made possible by an interactive learning environment. This laboratory/classroom builds upon the institution's three